A Collaborative Effort Toward Adding an Interactive Dynamical Vegetation Component to the NCAR Community Climate System Model (CCSM) Land Model

The objective of this study is to improve the capability of the Community Climate System Model (CCSM) by helping to develop and implement a dynamic vegetation component into the CCSM land model. The present land model, while providing detailed information of water, heat, momentum, and carbon dioxide (CO2) exchanges between land/atmosphere, uses a prescribed vegetation structure and coverage and thus cannot assess important feedbacks between vegetation and climate. A dynamic vegetation model, whose vegetation structure and coverage is most compatible with the land model prescription, has been chosen to integrate into the CCSM land model. Major-coupled experiments will consist of a pre-industrial model run, enhanced CO2 experiments, and a paleo-simulation of the mid-Holocene (6000 years ago). The work is important because it will increase our understanding of vegetation-climate interactions, on both paleo and shorter time-scales.